Archeological Investigations of Medieval Settlements

Dr. Boone and colleagues will conduct archaeological fieldwork in the Lower Alentejo and Serra do Algarve region of Southern Portugal. The project includes mapping and systematic excavation in a deserted village which dates to the Islamic period and was probably abandoned soon after. Mapping of surface features and limited soundings will also be carried out in two additional villages. This preliminary small scale work will provide the basis for a larger project. The fundamental question Dr. Boone wishes to address is how rural communities respond socially and economically to cycles of economic and demographic growth and decline associated with succeeding regimes of conquest and administration. In Portugal these include the Romans, Visigoths, Muslims and Christians and cover the period from approximately 100 to 1500 A.D. An ancillary issue to be addressed is the problem of ethnicity and the social organization of medieval populations inhabiting the dry, upland areas of the Iberian Peninsula where irrigation was impossible. These populations are known to have been distinct from groups in better watered regions. This research is important because it will provide insight into how relationships develop and are changed over time between urban and rural areas. The conditions which held in medieval Portugal still apply today to many areas in the Third World and the complex relationships which exist between rural inhabitants and the ruling urban elite (who are often culturally distinct) complicate regional politics and development efforts. Thus the work may have practical relevance. Archaeology has a unique contribution to make in such studies because it can examine such relations over long spans of time.